U.S.-Mexico Program: Kinetics of Non-Linear Reactive Systems

9600232 Redner This Americas Program award will support collaborative research between Dr. Sydney Redner, Boston University, and Dr. Francois Leyvraz, UNAM, Cuernavaca, Mexico, on the dynamics and resulting spatial organization of dilute inelastic gases. The project has three distinct parts: development of qualitative methods to understand the dynamics and clustering phenomena of inelastic gases, studies of the spatio-temporal behavior of a simple exothermic reaction model, and introduction and investigation of simple models of cooperative and competitive behavior that may lead to analytic advances. The problems to be studied are relevant to current studies in the theory of complex, non-linear systems. The research will lead to significant increases in our understanding of important technological processes and involves novel models that are of interest and potential relevance to the social sciences as well. ***